Collaborative Research: A Workshop to Draft the Implementation Plan for the Arctic in Rapid Transition (ART) Initiative - Winnipeg, October 2010

The goal of the Arctic in Rapid Transition (ART) Initiative is to better
understand multifaceted climate processes across the land-ocean-atmosphere
system. The Initiative began in response to the last International
Conference on Arctic Research Planning (ICARP), which identified the need
for synthesis activities across Arctic system science. Subsequently, the
ART program was established and has two phases. The first phase was
completed in early 2010 with the drafting of a science plan that was the
product of a three day workshop hosted at the International Arctic Research
Center in Fairbanks, Alaska. The workshop brought together more than 50
scientists from nine counties to outline the priorities to be considered
within the ART Initiative. The science plan was presented to the Arctic
Ocean Science Board (AOSB) and endorsed by the International Arctic Science
Committee (IASC) during their annual meeting in Nuuk, Greenland. With the
science plan written, vetted and endorsed by the broader Arctic science
community phase two of the Initiative can now begin. A workshop will be
held at the Freshwater Institute in Winnipeg Canada from October 18 - 20th
to draft an implementation plan based on the research priorities identified
in the science plan. The implementation plan will focus on linkages within
the marine system, including contributions from land-ocean gateways, shelf
seas, and the deep ocean. A range of time scales will also be explored, from
Paleoclimates to the rapid change currently being observed in the Arctic.
As with the science plan, the implementation effort will be organized and
executed almost entirely by early career scientists from five different
nations (U.S., Canada, Norway, Germany, and Sweden) making the ART
Initiative a unique international effort.